The Seventh International Conference on Surface Modification Technologies

9314520 Sudarshan Support will be provided for four graduate students and four researchers from US universities to attend the Seventh International Conference on Surface Modification Technologies to be held in Sanjo, Japan, November 1-3, 1993. *** B& L&E&F& G& a&I&W& N& M& g&P& e&V& ^& {&r& & h&f&_& & b&c&d& i& j&k&l&m&n&q&p& & v&u& z&y& ~&}& & & & & & & & & & & & & & & & & & & & & & & & & & & & & & & & & & & & & & & & 9314520 Sudarshan Support will be provided for four graduate students and four researchers from US universities to attend the | w | ! ! F | | < Times New Roman Symbol & Arial NewCenturySchlbk QMS-PS 820 LPT2: pscript QMS-PS 820 U D o d , X Z e n u " h Z %Z % / Martha P. King Martha P. King